Research in Gravitational Physics

The Chicago group is concerned with a broad range of research in theoretical gravitational physics. The areas of classical general relativity which will be investigated include further studies of the "two-center" problem, the closed universe recollapse conjecture, generalizations of the notion of total mass, and the equations of relativistic dissipative fluids. Issues to be studied which are closely related to classical general relativity include a general analysis of hyperbolic systems of equations and an investigation of possible new types of gauge theories. Research in quantum gravitational physics will continue, with research planned on certain topics in quantum field theory in curved spacetime, as well as in quantum cosmology and canonical quantum gravity.